CAREER: A Study of Strategies and Social Processes that Facilitate the Participation of Latino English Language Learners in Elementary Mathematics Classroom Communities

The proposed project aims to: (1) study resources and strategies for teachers that will facilitate participation of 3rd grade Latino English Language Learners (ELLs) in the mathematics classrooms; (2) develop related teacher professional development (PD) materials; and (3) integrate research and teaching activities. The basic research question is: How can 3rd grade teachers facilitate better mathematics instruction for ELLs? The PI will conduct a longitudinal study with teachers over three years in nine third-grade classrooms involving 20 Latino ELLs in each classroom. Data (district-administered assessments, one-on-one formal interviews, classroom artifacts, brief conversations with children following the videotaped lessons) will be collected from multiple sources including the use of head-mounted cameras to videotape classroom social processes. Also, existing research base and data from the nine classrooms will be used to develop, test, and publish PD materials for pre-service and practicing elementary teachers. The integrated education activities will have a direct impact on the design of University of Missouri Teacher Development Program, Masters Programs, TESOL Certification Program, and Mathematics Education Doctoral Program as well as local schools. The proposed project is qualitative. Teachers will also participate in a three-year professional development on ELL strategies and use classroom activities in the fall semester that are designed to assist 3rd grade Latinos acquire mathematical competence on various aspects of the number sense strand of the mathematics curriculum. All the relevant instruments will be collected and analyzed. Findings from the proposed research and integrated research/education activities will expand the knowledge base in the fields of elementary mathematics education and multilingual education.

The proposed research and education activities will inform our understanding of effective strategies in mathematics classrooms that will influence learning processes and ultimately student outcomes relevant to Latino ELLs and potentially other groups of underrepresented students. Findings from the project will promote effective teaching and learning of mathematics at the elementary level and will be broadly disseminated to students, teachers, teacher educators, and education researchers throughout the U.S. The PI will create a vehicle (i.e., PD materials) for U.S. elementary teachers to discuss critical issues related to engaging a group of students that have typically been non-participants in mathematics classrooms and potentially facilitate more effective participation for this growing population.